The New Milky Way: Exploring Our Home In The Universe

This project is designed to develop a 3D planetarium show and a TV documentary to describe our Universe, Galaxy and Solar system. This is a significant project for public and youth as they do not comprehend this aspect of their world with clarity. New technology using a 3D film is anticipated to be attractive and capture the audience's attention better than previous exhibits methodology. The Detroit region has been selected for testing various aspects of the planning project. The partners include the Detroit Science Center, the Detroit Public School system, Dr. Mark Morris (Astronomer) at UCLA, the Cranbrook Institute of Science, Detroit Public Television, and the Carnegie Science Center. Subsequent dissemination of the results and techniques increases the potential for Nation-wide impact.